U.S.-Japan Joint Seminar: Biosensors/April 1989/Honolulu, HI

This award will support a seminar on "Biosensors" organized by Dr. Howard H. Weetall of the Ciba Corning Diagnostics Corp., and Professor Isao Karube of the University of Tokyo, Japan. Participants will meet in Honolulu, Hawaii April 10-14, 1989 to exchange recent research results and promote future joint research projects. The seminar will deal primarily with the technology and principles of transducers and other components brought together as sensors for biological monitoring, e.g., of blood glucose, blood flow, heavy metal measurements, etc. Possible new forms of biosensors will also be discussed. In addition to sensors that measure voltages or currents, or depend on light for their operation, acoustic wave, piezoelectric, and enzyme-based sensors will be considered. Much progress has been made in both Japan and the U.S. in this field recently, and the breadth of experience and of content gathered in this seminar can be expected to give rise to new developments. This merging of biology with electronics can have important implications in the field of medicine and health maintenance.